Collaborative Research: Late Cenozoic Motion Between India and Australia

9417377 Gordon This proposal is for continued analysis of aeromagnetics data collected in the central Indian Ocean in 1990. The investigators will extend their analysis of magnetic anomalies 5 and 6 to additional anomalies. New estimates of India-Africa motion will be used to improve determinations of India-Eurasia motion and the India-Eurasia collision. ***